CAREER: A Unified Framework for Multilevel Parallelization on Deep Computing Systems

Nikolopoulos, Dimitrios
College of William and Mary
CCF-0346867

This research activity involves the design, development and deployment
of a programming framework for explicit multilevel parallelization using a
global address space model. The framework targets the upcoming generation of
Petaflop-class supercomputers, which are based on architectural substrates
with multiple levels of on-chip and off-chip parallelism and deep memory
hierarchies. The research addresses the need for increased productivity and
utilization of the National supercomputing power, by attempting to close the
gap between computer architecture innovation and parallel programming
practices. The main goal of this activity is to reduce the
programming effort required for mapping algorithmic parallelism to
hierarchical hardware components with heterogeneous means for parallel
execution and assist programmers in deriving balanced designs of layered parallel applications. The programming framework
investigated in this research unifies parallel programming models and
methodologies and enables faster adaptation of parallel code to new hardware
platforms. Concurrently, it forms a basis for education and training of
interdisciplinary student audiences in high performance programming.

The parallel programming component of this research is designed around
standard C++ templates with notation for nested threads and iterators.
The notations for parallelism are coupled with a templated representation of
data, which allows for arbitrary partitioning, sharing, and coherence control
at multiple levels of parallel execution constructs. While the programmer
highlights nested parallelism, the orchestration and management of multigrain
threads and data are delegated to the compiler and the runtime system. The
research investigates novel methods for controlling the
granularity of multilevel parallelism via vertical analysis of the program.
Periodicity analysis and selective runtime tracing are used as means to
derive effective data distribution and layout schemes without user
intervention. Alongside runtime analysis, new resource-driven scheduling
strategies and novel microprocessor features, including on-chip
multithreading, on-chip SIMD parallelism and speculative execution, are
incorporated into the parallelization and program optimization processes.